Asymptotic structures in Banach spaces

The geometry of a separable infinite dimensional Banach space
X can be studied and better understood through a study of its spreading
models and asymptotic structure (those finite dimensional bases that
can be found inside X, but arbitrarily spread out). Knowledge of these
structures does not always pass through to infinite dimensional information
about X but sometimes, surprisingly, it does. The author will study a
number of open problems of this nature using the tools of infinite
combinatorics, analysis and logic. For example if a Banach space has only
one spreading model, must it contain a copy of one of the classical Banach
spaces?

This project concerns the study of the geometry of normed linear
spaces. The easiest example of such a space is ordinary three dimensional
Euclidean space. However one may, even in two or three dimensions, have
other geometries than Euclidean. For example in the "taxicab" space
distances between points in the plane are computed by traveling the
shortest route along roads that run only horizontally or vertically. In
this geometry the set of all points equidistant from a fixed point is
diamond shaped rather than a circle. Applications of such alternate
geometries are numerous in physics, engineering, signal processing and
many other sciences. The state of a system or a signal may be given by a
sequence of numbers and one may have to have a way of computing the
distance between two states or signals to see how close they are. And in
these applications one has to often use finite dimensional spaces of
larger dimension than three or even spaces of infinite dimension. The
author will be exploring the latter case by studying the
"asymptotic" structures of these alternate geometries. This is a method of
linking finite and infinite dimensional structure. The techniques to be
used are a combination of analysis, infinitary combinatorics and
logic. The problems that arise could also impact and motivate development
in these latter areas as well.